PROJECT 21, Science & Mathematics Education Coming of Age Twenty-First Century Curricula in Twenty-First Century Schools

The State of Delaware proposes a Statewide Systemic Initiative, "Project 21", to effect change in science and mathematics instruction and learning. Project 21 focuses on three operational areas: (1) promoting continued culture change in schools and communities, (2) science and mathematics pedagogy, and (3) student performance assessment instruments. Cost sharing is 56%.